Continuing Support for Linnaean Plant Name Typification Project

The scientific "types" of species names are the actual plant or animal specimens, housed typically in natural history museums, that were used by biologists when describing and naming a new species. Unfortunately, natural historians of the 18th and 19th centuries rarely designated a single specimen as type, and consequently there can be confusion over the correct application of a scientific species name. The Linnean Plant Name Typification project is designed to provide a thorough and scholarly assessment of the types for each of the approximately 9800 species names published by the great Swedish naturalist Carl Linneaus in the 18th century. Many of these names pertain to economically or commercially important plants including numerous crops, spices, medicinals, and horticultural items. Hence, the use of correct and stable names is paramount both for scientific and practical reasons. Drs. Porter Lowry and Fred Barrie of the Missouri Botanical Garden, working with Dr. Charles Jarvis of the British Natural History Museum, are continuing their careful studies of type specimens housed in herbaria in Europe and elsewhere, pertinent to the application of Linnaeus's names. These names have priority as the first correct scientific names of plants, under conventions established at international botanical congresses, and ratified every five to six years at regular meetings of these organizations. A computerized database of names and specimens and associated information is being developed in conjunction with this work, and will be available through the Missouri Botanical Garden to all researchers on plants.